Experimental and Modelling Studies of Laser-Direct Write Processes

The fabrication of integrated circuits involves the creation of patterned, multilayer, thin film structures composed of insulators, semiconductors, and conductors. Typically, these structures are constructed by using photolithographic techniques in conjunction with additional processing steps, including chemical vapor deposition (CVD), etching, doping, etc. Some of these steps (e.g., wet etching) lack sufficient resolution for high density devices, while others (e.g., high temperatures in CVD) subject the wafer to extreme conditions that may damage underlying structures. Furthermore, patterning of thin films by lithography involves several complex processing steps (e.g. spin-on bake, expose, develop, etch, photo-resist strip) which increase the chance of defects. This has led researchers in the semiconductor industry to investigate laser processing of microelectronic devices. The repair of mask sets by depositing or etching a feature and customizing of electronic packages as other applications where laser processing is expected to have a considerable impact. Research in laser processing has resulted in an array of novel micro-chemical processing techniques. This PI's research program focuses on laser induced deposition. The process of scanning a laser beam across a substrate, causing reactants in either the gas, liquid or solid phase to react and deposit on the substrate is commonly referred to as laser direct-writing. This research project is a combined experimental and modelling study of the fundamental mechanisms underlying nonlinear morphological effects in direct laser writing of metal and semiconductor lines from spun-on metalorganic layers as well as by CVD. The experimental system consists of a microscope for focusing radiation from an argon laser onto a substrate. An x-y translation stage moves the substrate relative to the laser beam so that lines may be written. The nonlinear behavior to be investigated includes multiplicity phenomena, periodic patterns, and volcano-shaped deposits. These effects are observed over a wide range of operating conditions in a large number of applications including the deposition of gold from organogold films, silicon from silane, and yttrium- barium-copper-oxygen superconductors from spun-on metalorganic films. The overall goals of this coordinated experimental and modelling research program are to understand the underlying fundamental processes and to develop predictive models that may be used to prevent or control the nonlinear behavior. This will be critical to the further development of laser direct-write systems that will have to face new applications and meet increasingly stringent specifications on feature size in order to satisfy the needs of future microelectronics and micromechanical processing.